ASM Conference on Extremophiles 2004, to be held in Cambridge, MD on September 19 - 23, 2004

This award will support student and postdoctoral researcher travel grants to attend and participate in the Conference: "Extremophiles 2004: 5th International Conference on Extremeophiles" sponsored by the American Society of Microbiology. The conference will be in Cambridge, MD on September 19-23, 2004, and is organized by Dr. Frank Robb of the University of Maryland. The goals of the conference are: i) to provide a forum to assess progress in the biology, genomics, and systematics of microorganisms from extreme environments, including high and low temperature, high pressure, high salt, extreme pH, and desiccation; ii) to understand Archaeal model systems for eukaryotic transcriptional DNA replication/repair and translation; iii) to maintain an interest in structural genomics and proteomics that are growth areas in the field. Session topics will include: Origins/Exobiology/Ecology; Industrial/Biotechnology; Gene Expression; Structural Biology/Enzymology; Physiology and Metabolism; DNA Replication
Genetics and Genomics.